New Algorithms for Markov Decision Processes and Reinforcement Learning

Markov decision processes and reinforcement learning have had significant recent success in applications, ranging from outperforming humans in Atari games to AlphaFold overshadowing competing methods in predicting protein folding. This success results from several fundamental developments, including deep neural networks providing a powerful mechanism for representing high dimensional functions, unprecedented computing power provided by graphical processing units and tensor processing units, and the development of novel algorithms for both prediction and control. However, there are still many challenges in applying these recent techniques to mission-critical applications in health, social and economic planning, and defense. This project aims to develop and analyze novel algorithms for Markov decision processes and reinforcement learning with the intention of making these approaches more broadly applicable. Educational impacts include postdoctoral and graduate student training, as well as undergraduate course development centered around machine learning.

This project involves the development of a unified framework for Markov decision processes based on linear programming, where the primal, dual, and primal-dual problems are studied for both the regularized and non-regularized cases. Existing algorithms based on Markov decision processes will then be connected to this unified framework. For the tabular setting, a quasi-Newton type policy gradient algorithm will be developed for general entropic regularizers. For the primal-dual problem, a rapidly converging gradient ascent descent algorithm based on a strictly convexified formulation with a non-standard preconditioning metric will be developed. The nonlinear approximation setting will be addressed by variational actor-critic algorithms that are stable and converge at least to a local minimum. Finally, to address the double sampling issue, new algorithms based on the borrowing-from-the-future idea will be developed to significantly reduce the bias.